Pattern and Process of Speciation in Hawaiian Spiders: Evidence from DNA Sequences

In 1987, Dr. Rosemary G. Gillespie discovered a remarkable radiation of spiders in the genus Tetragnatha in the Hawaiian islands. She is currently describing the structure, behavior, and ecology of each of 50 previously-unknown and 8 known species found nowhere else on earth. Although Tetragnatha species are abundant and widely distributed on earth, the Hawaiian spiders are more diverse than those known in the rest of the world combined. The ultimate goal of the work proposed here is to explain the mechanisms by which this diversity was generated. Crucial to that goal is the construction of an accurate pattern of relationships (phylogeny) of the species. Recently, the use of DNA sequences to augment more traditional data used to determine relationships has already sequenced a segment of DNA from some of these species. The work proposed here will expand that data set in order to delineate the approaches which shall be taken in studying the mechanisms of explosive diversification in this group. The results of the final work should have broad implications in the field of phylogenetics and systematics at the species level, not only within ecologically- diversifying species swarms in Hawaii, but in continental habitats as well.